RUI: Polygonal Knot Theory, Controlled Topology and Topology of Homology Manifolds

Abstract

Award: DMS-0104111
Principal Investigator: Heather M. Johnston

Polygonal knot theory studies the isotopy classes of embedded
polygons in three space where the number and length of edges are
fixed throughout the isotopy. The PI and co-author have found
the first examples of polygons which are topologically unknotted,
but for which the isotopy class of embeddings is nontrivial. The
PI and student collaborators will investigate questions such as
whether or not there are any such examples for equilateral
polygons. Surgery theory studies the set of manifold structures
within a given homotopy type. The Bryant-Ferry-Mio-Weinberger
surgery exact sequence for homology manifolds has been used by
the PI to prove that up to s-cobordism many of the geometric
properties of manifolds also hold for homology manifolds. The
Novikov conjecture and related coarse Novikov conjecture are keys
to our understanding of surgery theory. The PI has developed
some techniques for attacking the coarse Novikov conjecture for
unusual non uniformly contractible spaces. Controlled and bounded
surgery theory will be used to further investigate homology
manifolds and the coarse Novikov conjecture.

Up to now, topologists have studied well-behaved spaces such as
manifolds. Yet singular spaces arise more and more frequently in
subjects such as analysis, algebraic geometry and physics. The
non-resolvable homology manifolds studied in this project are so
singular that they have no points whatsoever with Euclidean
neighborhoods. Perhaps these strange spaces will someday account
for the extra dimensions of the universe predicted by string
theory. Coarse geometry, and the coarse homology of John Roe are
ways of separating the large scale behavior of spaces from the
local information. The invariants of coarse geometry and
topology depend only on the large scale behavior of the
space. Better understanding of these objects and their invariants
will help topologists to classify the different types of singular
spaces, which appear throughout modern physics. In polygonal knot
theory, a new twist on the classical study of knots, a different
type of singular spaces is studied. This new theory is modeled by
sticks joined end to end by universally flexible joints (rubber
tubing perhaps) to form a closed loop. The PI has produced the
first examples of configurations which are stuck (cannot be
unraveled), but only because they are made of sticks. If the
same configurations were made of string they could be unraveled.
Knot theory of strings has been applied to the study of protein
and DNA molecules. For a small number of atoms each bond can be
represented by a stick in the model discussed here, This is a
richer and more appropriate model for small molecules than the
string which has been used in the past.